Large Rapidity Polarized Proton Measurements and Gluon Nuclear Saturation Effects at STAR

We have built and we will upgrade electromagnetic calorimeters for the
very forward region of the STAR detector at Brookhaven National Lab. It
is well known that when energetic particles are produced at large angles
to the incident beam axis (at high transverse momentum), the underlying
process involves scattering between pairs of individual quarks or gluons.
However, scattering that produces energetic particles at forward angles,
relative to the beam axis, is likely to involve the interaction of a
single high energy quark with one or more low energy gluons. Measurements
of these forward processes are important to understand how a single fast
quark interacts with a soft multi-gluon field. From general arguments,
saturation of these gluon fields is expected to occur when the number of
participating gluons is large. Theoretical models predict such effects.
Comparisons will be made between pp scattering and dAu scattering for
production of forward hadrons.

A similar pp measurement, with one proton polarized in a direction
transverse to the beam (up), leads to a left-right asymmetry in the
forward cross section. We plan new measurements of this asymmetry, with
detailed characterization of the correlated particle production that will
distinguish between models that require initial state quark orbital
angular momentum from models that involve the fragmentation of highly
polarized quarks into final state jet fragments. The resolution of this
question is an important step in understanding the roles of spin and
angular momentum for proton constituents.